Genetic Specification Neuronal Identity

9511338 Phillis The establishment of the distinct identities of individual neurons represents a fundamental step in the development of the diverse array of neurons that make up a mature nervous system. During this process, individual nerve cells develop distinct properties including characteristic anatomy, physiology, and patterns of connectivity. However, the mechanisms that confer neuronal identity are just beginning to be understood. The goal of this research is to investigate the role of a newly discovered gene in the establishment of neuronal identity in the invertebrate peripheral nervous system. Mutations in this gene affect behavior and the morphology of adult sensory organs. In addition, these mutations have the ability to enhance the phenotype of mutations in another gene that is a regulatory gene required to confer proper identity to external sensory organs. If function in this gene is lost, the mechanosensory bristles are transformed in their identity and acquire characteristics of internal stretch receptors. When mutations are present in both genes, there is an interaction that results in the loss of nearly all of the mechanosensory bristles from adults. The effects of mutations in the gene under study on sensory organ development will be investigated using several genetic and immunological markers specific to certain types of sensory organs. This analysis will determine whether mutations in the gene result in a transformation of sensory organ identity. The gene will also be cloned and sequenced to determine the pattern of its expression and the structure of its protein product. Finally, an ectopic expression system for the gene will constructed to determine whether expression in specific subsets of sensory organs affects their development. The data from these investigations will provide fundamental insights into the genetic mechanisms that function in the development and differentiation of the peripheral nervous system.